Management Training and Public Service Education as Correlates of Orientations Toward Public Service Professionalism among State Administrators in 50 States

The research proposed in this document is a study of the professional socialization of state public administrators. Preliminary findings of NSF (1987-1990) supported research on Kentucky State administrators has suggested that state government sponsored management training programs constitute an important correlate of the professional development of the state administrators in Kentucky. Considering the diverse program variations in the management training programs sponsored by various state governments, these preliminary findings on a single-state study suggest the need for a comprehensive national study. A theorical model was proposed in the earlier study which has been refined in this proposed national study. A new construct "state administrative culture" has been posited in the proposed model. The proposed fifty state study will focus on the relationships between public service education/state agency sponsored management training programs and the orientations of a representative sample of 25,000 state managers in the fifty states toward public service professionalism. The methodology of data collection will be mail surveys aiming at 50% response rate generating about 12,500 valid questionnaires for data analyses. Four specific hypotheses will be tested about the relationships between the orientations toward public service professionalism and public service education/management training. The proposed project will involve Kentucky State University graduate students, faculty, and professional staff of the Governmental Services Center. Consultants from the Council of State Governments, and research faculty from the universities of Kentucky and Louisville will assist the research team. One of the goals of the project is to strengthen the social science research capability of Kentucky State University, an historically black higher education institution. This will be the first national level empirical study of the professional socialization of state administrators with a comprehensive sample. It is anticipated that the findings of this study will generate new knowledge about the role of management training programs as agents of professional socialization of state public administrators.